Postdoctoral Research Fellowships in Chemistry

Dr. Matthew J. Fisher has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Fisher's doctoral degree was from the University of California at Irvine under the supervision of Professor Larry E. Overman. Dr. Fisher intends to continue research at Yale University under the sponsorship of Professor Samuel Danishefsky. Dr. Fisher's area of postdoctoral research will be tandem radical-cation polyolefin cyclization by photolysis of iminium ions containing an intramolecular olefinic donor and a cation trap. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.